Acquisition of an X-ray Diffractometer for the UndergraduateGeology Curriculum

The University will introduce x-ray diffraction techniques into the undergraduate geology curriculum. X-ray diffraction is an essential tool for understanding crystal structures and mineralogy. The equipment consists of a Phillips X-ray diffraction system with scintillation detector and powder camera, sample preparation equipment, and microprocessor control. The equipment will find use in introductory mineralogy and petrology courses, advanced optical mineralogy and petrography courses, a techniques oriented course in x-ray mineralogy and as part of independent undergraduate research. With the availability of an x-ray diffractometer, students will gain a greater appreciation of the fundamental principles of crystallography and mineralogy and be better able to function as working geologists following graduation.